Center for Laser Science and Spectroscopy (CLASS)

Hampton University proposes to establish a multidisciplinary CREST Center for Laser Sciences and
Spectroscopy (CLaSS), which will build upon the existing scientific resources and faculty expertise available in laser spectroscopy. The vision of the Center is to develop a world-class, multidisciplinary laser spectroscopy research and education center that is a new national resource at an HBCU. The Center will integrate research, education, research training, and outreach in selected areas of science and engineering. The mission is to increase the number of doctoral degrees in important areas of science and technology awarded to underrepresented groups.

The goals of the Center are to: 1) develop a multidisciplinary research center that will use laser spectroscopic techniques to advance the fundamental understanding of selected problems at the forefront of science and engineering; 2) enhance the undergraduate and graduate curricula by integrating research training to provide students with a solid foundation in laser spectroscopy; 3) involve students in an extensive program of research training and professional development including participation in national and international conferences, internships with our industrial partners, seminars presented by eminent scientists, and intensive training in scientific writing and presentations; and 4) develop innovative pre-college and undergraduate outreach programs that motivate student interest in pursuing careers in science and engineering. The K-12 outreach programs will be conducted in close collaboration with the Hampton and Newport News public school systems.